A Study of Concepts for a Square-Kilometer Array

AST-9804844 Abstract Funds will be used to study array configurations and alternative paraboloid designs for the Square Kilometer Array, attempting to take advantage of mass production economies. A series of workshops, including relevant expertise from several MIT departments and Haystack Observatory, will be organized to carry out the study.